A Microstructural Theory of Creep Deformation and Fracture

The research is centered on a microstructural theory of creep deformation and fracture. This theory should be able to capture such critical mechanisms of creep as grain-boundary sliding, cavitation, and the formation of the macroscopic crack. Methods to be employed present a balanced synthesis of latest metallurgical observations and continuum damage mechanics.